Metings: Support of Student Participation in the 2011 North American Membrane Society Meeting and the 2011 International Congress on Membranes and Membrane Processes

CBET 1133655
University of Toledo
Lipscomb

This proposal seeks support for student participation in both the 21st Annual North American Membrane Society Meeting (NAMS 2011), held June 4- 8, 2011 in Las Vegas, Nevada and the 2011 International Congress on Membranes and Membrane Processes (ICOM 2011), held July 23-29, 2011 in Amsterdam, The Netherlands. We anticipate providing financial assistance to ~50 students attending the meetings. The requested funding will be used to support graduate students from US universities. The availability of funding will be announced through the NAMS and annual meeting web sites. Awards will be coordinated with other student awards offered by NAMS to have the greatest impact on student support.

The NAMS annual meeting and ICOM triennial meeting are two of the preeminent global membrane meetings. The latest developments in the membrane field from leading academic, governmental, and industrial research labs are presented for the first time for evaluation by the membrane community. Membranes have become a critical technology to address pressing national needs. Membrane technology offers the ability to dramatically reduce energy consumption in industrial separation processes. The reductions in energy consumption can be accompanied by significant reduction in manufacturing costs as found in seawater desalination. Such a combination offers the unique ability to reduce our reliance on energy imports and greenhouse gas emissions without adverse economic impacts. Membrane processes also are important to the emerging alternative energy industry. Membranes enable low cost, low energy consumption separations in biorefineries, hydrogen production, and electrochemical systems--the subject of sessions at the NAMS and ICOM meetings. In addition to reducing energy consumption, membranes can reduce requirements for land and raw materials through process intensification and thereby enhance the sustainability of human activity--another area of national interest.

The requested funding will provide partial support for student participation in a professional meeting of the membrane industry. Attendance at a NAMS or ICOM meeting provides a unique opportunity for students to share their accomplishments with peers and more senior members of the community. The feedback they receive can help direct their work and provide encouragement. The involvement of students is vital to the membrane industry. Nearly double digit growth is expected in markets for membrane bioreactors and for gas and liquid separations through 2013. Such growth will require a pool of skilled workers. The support provided through this proposal will help attract the best students to the field and fill this pool by allowing them to participate in a meeting that offers an exciting environment for networking, education, and ultimate job placement. In addition to the development of human resources for the industry, the support provided by this proposal will allow presentation of the latest research results from the most innovative academic laboratories around the country. This showcase of new materials and technologies attracts significant industrial participation as it provides a unique environment to evaluate the commercialization potential of the research. The economic growth associated with such commercialization benefits the entire country.